Engineering Research Equipment: Computer System for the Benjamin Levich Institute of The City College of CUNY

This Engineering Research Equipment award will permit the purchase of various computer equipment components. They will be utilized in an ongoing research program involving numerical modeling in two- phase flow, turbulence, transport in porous media, and rheology of concentrated suspensions. Several investigators will share the equipment. The research areas impact various issues involving flow and transport in mechanical and chemical engineering systems.